Temperature-Dependent Cross Section Measurements: Absorption and Fluorescence Produced through Photoexcitation of Molecular Nitrogen

This research will measure (1) high-resolution, high- and room-temperature photoabsorption cross sections of molecular nitrogen and oxygen in the extreme ultraviolet region, and (2) temperature-dependent fluorescence cross sections for producing (a) neutral nitrogen emissions through photodissociative excitation of molecular nitrogen, and (b) ionized nitrogen 1085 and 916 angstrom emissions through dissociative photoionization excitation of molecular nitrogen. This work will utilize existing instrumentation, including windowless high temperature absorption cells and a high temperature effusive gas cell.